Statistical Theory and Methodology

ABSTRACT

Prop ID: DMS-050 5673
PI: Efron, Bradley and Diaconis, Persi
NSF Program: STATISTICS
Institution: Stanford University
Title: Statistical Theory and Methodology

LARGE-SCALE SIMULTANEOUS TESTING (Bradley Efron)

This investigator is studying the analysis of large-scale simultaneous hypothesis
testing situations, for example a microarray experiment searching for genes that
behave differently in HIV positive or negative subjects. A simple
methodology is being developed that requires a minimum of frequentist or
Bayesian modelling assumptions, and provides for both the efficient
selection of the non-null cases, and the estimation
of effect sizes. In classical terminology, both size and power are assessed.
This methodology depends on false discovery rate calculations,
implemented via empirical Bayes techniques. A typical result might report
"there are 200 of the 10,000 genes that can be clearly identified as
differentially expressed between the two groups of subjects, but there are
also about 800 other non-null genes that this experiment was not powerful
enough to detect."

Classical 20th Century statistical theory was fashioned to handle small
problems, dozens or maybe hundreds of data points, with one or maybe a few
unknown parameters. 21st Century scientific technology now provides massive
data sets, with millions of individual measurements and thousands of
parameters to consider all at once. Microarrays are the prime example, but
similar problems arise from a variety of devices: proteomic chips, time of
flight spectroscopy, flow cytometry, and fMRI scanners. The goal of this
research is an efficient, computationally efficient methodology for analyzing
massive simultaneous testing problems, without the need for extensive
modelling assumptions.

MONTE CARLO METHODS IN PROBABILITY AND STATISTICS (Persi Diaconis)

The main focus of this investigation is on rates of convergence of Monte Carlo
and Markov chain algorithms for statistical computation. One aspect is
phase transitions ( cut-off phenomena), extending Diaconis' recent solution of
the Peres conjecture (joint with Saloff-Coste). The work
includes creating new algorithms using computational tools such as Grobner
bases and combinatorial characterizations such as Tuttes f-factors. This also
contributes to Bayesian methodology studying prior distributions for Markov
chains, non-parametrics and
computational tools. A final focus is the development of group theoretic
character theories in non-standard situations such as
unipotent groups and Hecke algebras.

Probability models underlie many areas of modern scientific study, but they
raise puzzling and important questions concerning the connection of the
model with real world phenomena. Diaconis studies
foundational topics such as `what does it mean to say coin flips are
random'? This recently led to the discovery (joint with Susan Holmes and
Richard Montgomery) that in fact, natural human coin flips show a small but
significant bias (about 51% come up the same as the previous flip).
Careful looks at the assumptions, justification and
validity of `randomness' apply to widely-used simulation methods (how long
should an algorithm be run until its job is done?). Weather forcasting
and air pollution are just two of the areas that require the dependability
of such simulations.